Micro Observatory Net

9454767 Sadler We are proposing to network together several remote telescopes and to test the feasibility of their use by students from grades 4-12. We will design and test specialized software that will allow students to work with each other and to collaborate with astronomers on research projects. Remote control of telescopes has the potential to transform conventional science classes and to serve students with physical disabilities. Such a network will allow students, even in communities that are resource poor, access to powerful tools that will increase their educational opportunities. This project will examine the problems inherent in using remote instruments and test solutions which will improve ease-of-use and accessibility to a wide audience. This project will provide a model to be followed in placing other remote scientific instruments on the Internet for educational purposes. It could prove a catalyst in encouraging the collaboration of scientists and pre-college students in research projects. It could also result in the discovery of new asteroids, comets, and variable stars by our nation's youth.